Real Time Microprocessor Application

"Real Time Microprocessor Application" uses solderless breadboards and test equipment to support a laboratory oriented course in Microprocessor based design. Each student builds a 68000 microprocessor based computer which is applied to real time systems (currently, distributed control of an electric train set). The instruction not only covers basic computer interface and operation, but will allow focus on interrupts and their timing considerations, multi-tasking, priority levels, and communications issues. By having each student build up his own processor from the device level, students become more aware of issues that can be overlooked with board level products.